Role of Defects on Electron Dynamics in Strongly Correlated Copper Oxides: Bridging Theory and Experiment in Ultrafast XUV Spectroscopy

A team of researchers from The Ohio State University are funded to use a combination of experimental and theoretical approaches to understand the effect of structural defects on the properties of copper oxide semiconductors. Because structural defects, which currently limit the functional performance of semiconductor devices, are poorly understood and difficult to control, this project directly addresses national research priorities related to semiconductors and microelectronics. This team of researchers will advance these priorities through a combination of advanced spectroscopy and quantum chemical calculations to understand and eventually control the electronic effects of specific defects in copper oxide semiconductors. Copper oxide is an abundant, p-type semiconductor with potential applications for catalytic reduction applications and quantum information technologies and will serve as the model system for these studies. This combination of experimental and theoretical approaches promises to provide a detailed description of defect-mediated electron dynamics in copper oxide and to establish a generalizable method for addressing challenges in semiconductor chemistry relevant to catalysis and quantum technologies. This project will also strengthen the ultrafast science community by fostering collaboration through scientific workshops involving experimental and theoretical researchers in this field.

To accomplish these goals, this team of researchers will establish experimental benchmarks for characterizing defect state electronic structure using extreme ultraviolet (XUV) spectroscopy to measure element- and oxidation-state–specific copper M-edge spectra of copper oxide thin films containing controlled populations of Cu and O vacancies. Researchers will simultaneously develop a multiscale theoretical framework that combines quantum embedding approaches with high-level wavefunction-based correlated methods to predict the ground- and excited-state electronic structure of Cu and O vacancies. Finally, time-resolved XUV spectroscopy will be integrated with theoretical simulations to probe charge trapping, recombination, and energy transfer pathways on femtosecond timescales. Direct comparison of measured and simulated transient spectra will uncover the microscopic mechanisms by which specific defects control nonradiative relaxation and photoconversion efficiency. Through these three tightly integrated objectives, this project will advance fundamental understanding of defect-mediated electronic structure and carrier dynamics in copper oxide and provide a generalizable framework for connecting atomic-scale defect chemistry to ultrafast electronic dynamics in correlated materials.